Increasing Storage Performance and Reliability with Magnetic RAM

The research dramatically improves file system performance and reliability
by using Magnetic RAM as a permanent store for both file system indexes
(metadata) and data. Keeping metadata in MRAM increases the speed of
metadata operations by more than an order of magnitude while decreasing
software complexity and improving integrity. This research also
investigates dynamic memory-based algorithms for metadata management,
reducing metadata size and complexity while increasing metadata
flexibility. The research explores the effects of varying MRAM sizes and
performance characteristics on file system performance and the choice of
file system algorithms.

The higher file system performance and higher reliability made possible by
this research has several far-reaching impacts. First, file system
performance improvements of an order of magnitude dramatically reduces file
server costs, making storage more affordable. Second, the reduced code
complexity enabled by the use of memory-based algorithms permits faster
development of simpler file servers. Third, the increased reliability from
lower code complexity and continuous integrity checking allows the
production of much more reliable file servers. The research is also
applicable to systems built with other emerging non-volatile memory
technologies such as FeRAM and new types of Flash RAM.